U.S.-Korea Cooperative Research On Polyphosphate Accumulation in Bloom-forming Cyanobacteria:Effects of Irradiance and Cell Carbohydrate

9301038 Rhee This award provides funds to permit Dr. G-Yull Rhee, New York State Department of Health and School of Public Health, State University of New York at Albany, to pursue with Dr. Jueson Maeng, Department of Biology, Sogang University, Seoul, and Dr. B.C. Kim, Kangwon University, Choonchun, Korea, for a period of 24 months, research on polyphosphate accumulation in bloom- forming cyanobacteria: effects of irradiance and cell carbohydrate. Specifically, the project will involve the study of (1) the effects of irradiance and cellular carbohydrates on polyphosphate accumulation in bloom-forming cyanobacteria, (2) the carbon flow from photosynthesis during polyphosphate accumulation, (3) competition for energy by polyphosphate accumulation and nitrogen fixation, and (4) any temporal and spatial distribution of polyphosphate synthesis in the water column during vertical migration. This study will include both laboratory experiments and field investigations. Buoyancy regulation by cyanobacteria is a unique physiological characteristic which contributes to their dominance in eutrophic waters. Although the physiological mechanism of its regulation appears to be complex and not yet completely understood, this ability can place them at depths that may offer optimal photic and nutritional conditions. Studies will be conducted at Lake Soyang, Korea, and, in the laboratory, on bloom-forming species from Lake Soyang and other Korean waters. The PI and his Korean collaborators are experienced investigators in the field of this research. Under their work plan, the PI will be responsible for tasks number 1 and 2, above; the Korean collaborators will conduct task number 4; and the PI and his collaborators will jointly investigate task number 3. This project is relevant to the objectives of the U.S.-Korea Cooperative Science Program which seeks to increase the level of cooperation between U.S. and Korean scientists and engineers through the exchange of sci entific information, ideas, skills, and techniques and through collaboration on problems of mutual interest and benefit. Participation of the Korean collaborators in the project is supported by the Korea Science and Engineering Foundation (KOSEF). ***